Transition Metal-Catalyzed Olefin Polymerizations: Mechanistic Studies and Catalyst Design

9412095 Brookhart University of North Carolina - Chapel Hill Dr. Maurice Brookhart, Chemistry Department, University of North Carolina - Chapel Hill, is supported by the Inorganic, Bioinorganic, and Organometallic Chemistry Program for an investigation into the metal catalyzed olefin polymerizations and oligomerizations. The energetics of metal migration along alkyl chains will be determined, methods will be developed for the preparation of terminally functionalized polyethylene, and highly functionalized polyethylene will be prepared using previously identified cobalt catalysts. New nickel and palladium catalysts, based on cationic allyl complexed, and highly selective rhodium catalysts will be prepared for the production of functionalized polyethylene. Some of the highest volume commercial polymers are obtained from the polymerization of olefins. Most commercial catalysts are based on metals which occur on the left side of the periodic chart. This study is aimed at metals in the middle of the chart since these metals are more compatible with a wide variety of olefins which will permit the design of new catalysts for the improved production of plastics with a wide range of properties.